Upgrading of Rock Magnetic and Paleomagnetic Facilities at University of California, Davis

This award provides 50% funding for the acquisition of equipment for the Paleomagnetism Laboratory of the University of California at Davis. Equipment items include an alternating field gradient magnetometer, a Mossbauer spectrometer, a Curie balance system, a magnetic susceptibility bridge, and ancillary equipment. The laboratory supports the research of the PI, his students, and on-campus as well as off-campus collaborators. The PI's research program is concentrated in the behavior of the geomagnetic field throughout geologic time, applications of paleomagnetic techniques to plate tectonics and related geologic phenomena, the origin of rock and mineral magnetism, and environmental magnetism.